1989 Northwest Regional Developmental Biology Conference Friday, Harbor Laboratories, University of Washington April 13th thru 15th, 1989, San Juan Island, Washington

Funds are requested for support for the 22nd Annual Meeting of the Northwest Regional Developmental Biology Conference to be held April 13-15, 1989 at Friday Harbor Laboratories of the University of Washington. Historically, this meeting has attracted developmental biologists from the Pacific Northwest region of the United States, as well as from Western Canada. The topics covered at the platform sessions are: Gene Expression in Development, Control of Differentiation, Cell Lineages and Morphogenesis, Gametes and Fertilization and Neuronal Development. A major purpose for this meeting has been to provide an educational experience for young scientists. The small size, informal atmosphere, and physical isolation promote communication among graduate students, post-doctoral fellows, and faculty members. It also provides an excellent forum for junior members to present their work. %%% The conference has presented an educational opportunity to junior participants noted above that is not available to them at their individual institutions and also allows scientists within the region at all levels to communicate with each other.